Hochschild theory in algebraic geometry

There are two themes to this project. The first is the study of
Hochschild structures that arise naturally in algebraic geometry.
Hochschild homology and cohomology are essential invariants in both
algebra and geometry, and the PI proposes to study them from an
algebraic-geometric point of view. The second is the study of
explicit example of spaces which have the extra structure of {\em
genus one fibration}. These spaces are ubiquitous in classical and
modern algebraic geometry, and the PI expects that by using the
techniques of derived categories new insights can be gained into their
geometry.There are three projects contained in the present proposal.
The first project is concerned with finding explicit formulas for the
multiplication in the Hochschild cohomology ring of orbifolds, with
applications to the Ruan conjecture. The second aims at understanding
the abstract Mukai pairing on the Hochschild homology of smooth varieties,
and its relationship to the Poincar\'e pairing on differential forms.
This would provide a new perspective on the Riemann-Roch theorem.
The third project is a study of genus one fibrations with
multi-sections of small degree. It has applications to the study of
stable singularities in string theory, as well as to the understanding
of the Torelli problem for Calabi-Yau threefolds.

Algebraic geometry, which is the geometric study of solutions of
polynomial equations, has seen in the last few years major
developments, especially in terms of its applications in other fields
of science. Of particular importance are applications to modern
theoretical physics, in particular in string theory. The present
project will increase our general understanding of the geometry of
some of the spaces that are important in algebraic geometry and
physics.